Proteoglycans in Neural Development

The control of cellular behaviors such as cell migration, axon guidance and synaptogenesis is critical to nervous system development. To understand the molecular basis for this control, it is essential to identify the molecules that are involved. Proteoglycans comprise a class of glycoproteins long suspected to play key roles in the morphogenetic behaviors of cells. Evidence that proteoglycans are particularly important to neural development is considerable, but largely either indirect or circumstantial. Advances in this area have been slow because proteoglycan fractionation and analysis have traditionally been difficult. Recently, however, these methods have been improved considerably, making it possible to obtain tools with which to assess the functions of nervous system proteoglycans directly. As a first step toward this end, proteoglycans will be isolated from developing neural tissue (fetal rat brain, cultured neurons) and characterized by the size of their protein cores, the class of glycosaminoglycan-binding proteins of the nervous system. Monoclonal antibodies reacting with some of these proteoglycans will be identified. As a result, it will be possible to identify particular proteoglycans whose temporal expression, spatial distribution, or binding specificities are consistent with particular roles in neural development.